RAPID: Capturing Perishable Interfacial Erosion Signatures in an Aging Wooden-Core Earthen Dam Under Near-Overtopping Reservoir Levels

Earthen dams built over a century ago represent a vulnerable segment of national infrastructure. In March 2026, extreme storms in Hawaii severely saturated the 121-year-old wooden-core Wahiawa Dam, prompting state-mandated emergency evacuations of over 5,500 residents, an expedited transfer of ownership to the state, and construction remediation of the spillway and downstream embankment. This dam features an unusual architecture consisting of an internal wooden core wall encased in a hand-placed rock wall, loose rock fill, and a shell built from native volcanic soil. The construction remediation began in June of 2026 and will continue for approximately one year. The active excavation of the downstream embankment to install a drainage feature presents a fleeting opportunity to capture structural data from the interior of this unique composite structure before it is permanently sealed away again. In alignment with the National Science Foundation mission to advance national welfare, this Rapid Response Research (RAPID) project preserves critical physical evidence of a century of internal soil decay and wood biodegradation, helping engineers better assess how unseen internal decay affects dam safety. This research directly advances the Natural Hazards Engineering Research Infrastructure Science Plan by leveraging perishable data to improve community and infrastructure resilience to increasingly severe storms. The outputs, including rich multi-modal datasets and a three-dimensional spatiotemporal digital twin, will be openly distributed and can be used to improve both local hazard modeling and emergency action plans. The fieldwork provides hands-on training in disaster-response and remote-sensing technology for students and early career professionals.

The scientific goal of this rapid-response project is to preserve perishable three-dimensional geometric and thermal seepage datasets of the Wahiawa Dam during active excavation of the downstream embankment. The research team at the University of Hawaii at Manoa will execute field campaigns using shared instrumentation from the Natural Hazards Engineering Research Infrastructure facility alongside institutional assets. The methodology employs a dual terrestrial laser scanning strategy, utilizing a long-range scanner for safe tracking of unstable cuts and a high-density scanner for close-range capture of exposed structural anomalies. Successive point clouds registered using permanent Global Navigation Satellite Systems (GNSS) benchmarks will be analyzed via change-detection algorithms to track structural relaxation and void collapse. Concurrently, the team will map local temperature variation using thermal cameras to identify preferential seepage pathways and structural degradation propagating from the decaying timber core through the surrounding rock and hydraulic saprolite fill. Fusing these datasets with temporal storm baselines, the team will construct a three-dimensional digital twin tracking the morphological evolution of the failure zone. This work addresses grand challenges in the Natural Hazards Engineering Research Infrastructure Science Plan by testing competing hypotheses regarding internal soil erosion and saprolitic soil resilience. All datasets will be permanently archived and made publicly available through the DesignSafe cyberinfrastructure platform.